International Conference on Multimedia & Expo 2000 (ICME2000) Student Registration/Travel & Publication Cost Support

ICME is a new multimedia conference slated to be the major Institute
of Electrical & Electronic Engineer's (IEEE) conference on the subject
of Multimedia technologies and is to take place in New York City in
July-August 2000. The conference is meant to deal with the emerging
discipline of multimedia processing under the sponsorship of several
IEEE technical societies. This multidisciplinary conference is
expected to deal with confluence of several areas ranging from
wireless video, internet, universal access of computing devices, joint
audio-video and multimodal processing, computer animation, perceptual
human computer interfaces including newly emerging standards
technologies.

The funding involves student support by providing opportunity for
disssemination of technical information in this evolving field for
training and education of graduate students, who are the potential
leaders of technlogy workforce of the nearterm as well as longterm future.
Specific engineering disciplines addreesed are signal processing,
communications and networking, database systems, hardware and system
integration for multimedia procesing etc.